CAREER: Malware Immunization and Forensics Based on Another Sense of Self

Abstract of Proposal 0845042

CAREER: Malware Immunization and Forensics Based on Another Sense of Self

Xinyuan Wang, George Mason University

Despite recent advances in malware defense, computer malwares
(e.g., virus, worm, botnets, rootkit, spyware) continue to pose
serious threats to all computers and networks. Besides being more
damaging, modern malwares (e.g., blue pill, agobot) are becoming
increasingly stealthy and evasive. This has made it increasingly
difficult to protect our computer systems and networks from malwares
and ensure the trustworthiness of our mission critical systems.

Our natural immune systems are very effective in protecting our
body from intrusions by (almost endless) variations of pathogens.
Our immunities depend on the ability to distinguish our own cells
(i.e., "self") from all others (i.e., "non-self"). Inspired by the
self-nonself discrimination in the natural immune systems, this
research explores a new direction in building artificial malware
immunization and malware forensics capabilities based on "another
sense of self", which is essentially a unique mark to be assigned
to the programs to be protected. Based on such an actively assigned
"another sense of self", the "immunized" program is able to
detect application level malwares effectively and efficiently. In
addition, the actively assigned "another sense of self" enables
new malware forensics capabilities that were not possible before.
Since the artificial malware immunization technique does not require
any specific knowledge of the malwares, it has the potential to be
effective against new and previously unknown malwares. The new
artificial malware immunization techniques and tools to be developed
could automatically make many applications (e.g., Web server) immune
to many malwares and thus greatly improve the trustworthiness of
computer systems.